Technician Support, R/V CAPE HATTERAS

Barber/Ustach 9400527 Duke University requests renewed funding for shipboard technician activities associated with the research vessel CAPE HATTERAS, a 135-foot vessel. The CAPE HATTERAS is owned by NSF and operated by Duke. In calendar year 1994, the CAPE HATTERAS will support a total of 157 days of NSF-funded research, primarily in the western North Atlantic. Duke technicians will be responsible for operating and repairing instruments while at sea, maintaining instruments ashore and assisting with scientific operations necessary before and after cruises.